GK-12 Project STAMP -- Science Technology and Mathematics Partnerships

Project STAMP - Science Technology and Mathematics Partnerships - provides graduate fellows from the University of Boston, from the departments of Biology, Physics, Chemistry, Medicine and Engineering, for educational activities with grade 6-12 students in the urban and suburban Boston, Chelsea, Newton and Quincy school districts. External partners include the Boston Museum of Science, the New England Aquarium, Melles Griot (an optics company) and the New England Board of Higher Education. Nine graduate students and four advanced undergraduates are supported per year. The themes are investigation, experimentation and problem solving. Innovative aspects include the use of a mobile laboratory as a capstone experience. The wide variety of school districts participating illustrate the broader impacts of this project as does the extensive use of the many resources available in the Boston area. This project is partially supported with funds from the Directorate for Mathematics and the Physical Sciences

Project title: Science, Technology and Mathematics Partnerships
Institution: Boston University
PI/Co-PI: Bennett Goldberg, Donald DeRosa, Peter Garik, Constance Phillips, Michael Ruane
Partner School Districts: Boston, Chelsea, Newton, Quincy
Funding: $ 1,419,131 total for 3 years
Number of fellows/year: 9 graduate, 4 undergraduate
Setting: Urban
Target audience: 6-12
NSF supported disciplines involved: Biology, Physics, Chemistry, Engineering